The Formation, Evolution and Chirality of Filament Channels: A Physical Basis to Elements of Space Weather

Filament channels are the common denominator for the origin of coronal mass ejections, erupting filaments and associated flares. These events do not occur until the filament has reached a critical stage of development. This proposal consists of five observational projects and one theoretical project all aimed at the single goal of understanding the origin and evolution of filament channels as a physical basis to elements of space weather.